Summer Institute in Supercomputing

In response to a Project Solicitation, MPC Corporation, representing the Pittsburgh Supercomputing Center (PSC), submitted a proposal to conduct a Supercomputer Summer Institute in 1987. This proposal and eight others were evaluated by a review panel. MPC proposes a two week Institute for 20 young researchers from July 20 to 31. Students will be reimbursed for travel and living expenses during their stay. In addition to training on the use of the PSC facilities (Cray XMP-48 supercomputer and supporting equipment), students will be exposed to presentations on advanced graphics, parallel programing, networking and a special emphasis on the use of a particular numerical technique, partial differential equations, used in the solution of fluid transport problems common to a variety of scientific disciplines. The review panel found this to be a reasonable, but not exciting, proposal with a high probability of success. The lecturers are for the most part drawn from local institutions and from within the PSC itself. The course has been taught in an abbreviated form before; most of the difficulties will have been worked out. Because of the modest goals, the cost of this Institute is very reasonable, with most costs centered around support for participants. MPC has asked for supplement of $4,919 beyond the initial proposal, to partially support the acquisition of additional workstations to be used during the Institute and to remain in use at the PSC for future training and visitor programs. This request seems modest and sensible. In addition, an undergraduate component of $2912 has been identified. The Centers Program recommends support of a Summer Institute at the Pittsburgh Supercomputing Center in the amount of $43,976.